US/Japan BioNanotechnology Exchange Workshop; Japan

Intellectual Merit
The United States and Japan have recognized Nanoscience and Nanotechnology as frontier areas
of research with potentially widespread societal impact, promising to transform health,
electronics, transportation, the environment, and national security. In both countries, significant
investments in these areas have been made and their rapid growth is expected to continue in the
future.
To be successful, research and training efforts in this emerging arena have to be highly
interdisciplinary and interactions will have to span not only across fields and professional hubs,
but also across international boundaries, so that the strengths and resources available in each
country can also benefit other countries. With this in mind, the Japanese Ministry of Education,
Science, Culture, Sports, Science and Technology (MEXT) and the United States National
Science Foundation (NSF) initiated the support of scientific exchange visits between the two
countries. We propose to organize the next exchange visit to several Japanese universities for
twelve US scientists early in their academic careers, with research interests broadly defined as
Nanoscience and Bionanotechnology. The Japanese government will sponsor a similar trip of
twelve young scientists from Japan to several US universities as the counterpart component in
this exchange program. The focus on young scientists is driven by the premise that the
possibilities for building long-term and meaningful partnerships are far higher if contacts are
made early in one's career.

Impact of Proposed Research
Links established between scientists in the US and Japan at the very early stages of their
academic careers will lay the foundation for a long-term fruitful collaboration over an extended
period, maximizing the likelihood for a successful global interdisciplinary effort and productive
relationship between these two and other countries.